Mathematical Sciences: Stability Properties for Spaces of Vector-valued Functions

Professor P. Saab will continue to work on problems concerning stability properties for spaces of vector-valued functions, namely the Pelczynski property (V) and the Dieudonne property for spaces of Bochner integrable functions, and on problems connected with those Banach spaces that are M-ideals in their biduals as well as on problems arising from studying operators on spaces of continuous vector-valued functions.